Auxin Conjugation in Arabidopsis

9320120 Town Indole-3-acetic acid (IAA) is the principal naturally-occurring member of a class of plant growth hormones known as auxins. IAA is involved in a wide range of plant processes including cell growth and differentiation, fruit development and senescence. In plants, most of the IAA occurs not as the free acid, but conjugated either to various sugars via ester linkages or to amino acids or peptides via amide bonds, the latter form of conjugate being more prevalent in most dicots. Several roles have been postulated for auxin conjugates, including storage for use during germination, IAA homeostasis, and even tissue targeting. Various lines of evidence suggest that auxin conjugates are active only after hydrolysis to free auxin. Despite the obvious importance of auxin in the plant, and the potential significance of the much larger reservoir of conjugated auxin, very little is known about the biochemistry and even less about the molecular biology or genetics of the synthesis or degradation of IAA conjugates. In this proposal, several approaches will be used to isolate genes involved in IAA conjugate metabolism. This laboratory has recently isolated a cDNA encoding a conjugate hydrolyzing activity by a yeast complementation strategy. The principal focus of this proposal is to characterize many facets of the structure, expression and biological function of this activity in Arabidopsis. As time permits, other studies on conjugate function and metabolism which were ongoing prior to the cDNA isolation will also be continued. ***